U.S.-Chile Collaboration: Some Parabolic Equations and Systems of Ordinary Differential Equations with p-Laplacian Type of Operators

0204032
Ward

This is a collaborative research project between Dr. James R. Ward of University of Alabama at Birmingham, and Dr. Raul Manasevich and Marta Garcia-Huidobro of Universidad de Chile and Pontifica Universidad Catolica de Chile respectively. The investigators intend to work on the mathematical analysis of boundary value problems for partial differential equations. These problems appear in modeling both slow and fast diffusion, and are useful in the study of populations and diseases, porous media, and problems that are inherently nonlinear. The investigators will use topological tools, such as degree and homotopy indexes, that are useful indicators of system behavior.

Each side brings their own strengths to the collaboration: Drs. Garcia-Huidobro and Manasevich have extensive experience in quasilinear differential equations and bifurcations, while Dr. Ward has worked at length with the topological tools to be used in their joint effort.